Mathematical Foundations of Computer Science

The objective of the proposed work is to develop a freshman level course, Foundations of Computer Science,in the interface of computer science and mathematics that integrates critical reasoning, provlem-solving strategies and discrete mathematics topics with fundamental computer science concepts. Mathematics and computer science educators have observed and commented on the weaknesses of entering college students in the areas of problem solving and mathematical reasoning, skills which are fundamental to computer science and should be a primary focus of the first college level course for computer science majors. The course to be developed emphasizes the importance of mathematics and provlem-solving concepts within the context of computer science and its applications. Computer laboratories are an integral component of this philosophy. Hands-on experience acts as a catalyst to reinforce course material, provides motivation for learning and encourages students to be creative, independent thinkers. An added bonus is the wide applicability of such an approach to other mathematically based disciplines. The primary objective is to develop and evaluate material which makes it easier for educators to teach mathematically based introductory computer science courses and to integrate these concepts into existing courses. The material to be developed includes guidelines, available resources, annotated notes, problem sets, exam questions and laboratory software and manuals. The material will be disseminated through announcements in mathematics/computer science education journals, meetings, newsletters, electronic bulletin boards and direct nailings. Evaluation of course material using both problem-solving and mathematics pre- and post- tests and survey questionnaires can assess the suitability of this approach for introductory computer science and can improve the quality of the material. Evaluation of laboratory material canalso significantly improve the quality of supporting courseware and manuals.